Travel support for US scientists to attend GR19

This award will enable U.S. scientists to attend GR19 (the 19th International Conference for General Relativity and Gravitation) in Mexico City, July 5-9, 2010. The travel funds will allow U.S. researchers, including young researchers, to present their work at the international meeting and learn of new results.